Glutamate Stimulated Phosphorylation

Protein kinase C (PKC) is an enzyme involved in mediating and regulating the actions of many neurotransmitters, hormones and growth factors. Ubiquitously located in the body and mainly concentrated in the brain, protein kinase C is activated by second messengers, Ca2+ and diacylglycerol. The activity of protein kinase C has been implicated in a number of neurological functions such as neurite extension, regulation of ionic conductances and neurotransmitter release. PKC exerts its effects on neuronal activity by attaching phosphate groups to substrate proteins. The goal of this research project is to examine the mechanisms by which the enzyme regulates cell activity at the molecular level. Three in vivo substrates will be characterized and identified by studying the pathway of PKC activation. Dr. Scholz will utilize glutamate receptors to stimulate PKC phosphorylation. Results from this study will provide additional information on the function of PKC in neuronal development.